"Coordinating Multi-Processor Organizations"

This is a group project to investigate interdisciplinary aspects of problems relating to coordinating the activities of autonomous agents. It researches a variety of issues arising in computer science, electrical engineering, economics, and operations research. Some of the problems are purely theoretical and typically use techniques of discrete and combinatorial mathematics. Some require computational experimentation. And some of them model the practices and tasks of real organizations. The problems have a common thread, and this project will develop a precise common language, so that the work on one problem will have an impact on the others. In each problem, there is a group of processors/persons who are to perform a common task. A designer is to chose a coordination scheme that specifies for each person/processor the computations and the communicating that must be performed at each of a sequence of points of time. The designeer wants the scheme to be efficient with respect to several cost measures. The costs may include communication time, computing capacity, distance from correct task fulfillment, and the capacity to control actions. To make this research a group venture, a continuing seminar on coordination problems is conducted and advanced graduate students are involved. The project goal is to exploit the different techniques and perspectives of the disciplines involved to advance knowledge concerning the central problem of how to efficiently coordinate activities involving inputs, processes and decisions of several separate agents.